Query Processing in Knowledge Base Systems

9314897 Chen SLG resolution, Linear resolution with Selection for General logic programs, is an effective method of query evaluation for deductive databases. It is upward compatible with Prolog. This project extends SLG resolution into nonmonotonic reasoning, develops an efficient implementation of SLG resolution, and integrates it with Prolog. The objective of this effort is to deliver an integrated system that supports logic programming, deductive queries, and nonmonotonic reasoning in a seamless manner. The proposed implementation uses newly developed techniques of incremental maintenance of goal dependencies to improve its efficiency of deductive query processing. It supports computation of three valued stable models in nonmonotonic reasoning. It offers constructive negation for negative goals with constraints or variables. By providing a uniform programming interface and powerful integrated query answering, the proposed system minimizes the mismatch between application programming and knowledge processing and increases the productivity in developing knowledge based software.